Digitization TCN: Collaborative Research: Southwest Collections of Arthropods Network (SCAN): A Model for Collections Digitization to Promote Taxonomic and Ecological Research

Collaborative Research Digitization TCN: Southwest Collections of Arthropods Network (SCAN): A Model for Collections Digitization to Promote Taxonomic and Ecological Research

The Southwest Collections of Arthropods Network (SCAN) brings together 10 diverse arthropod collections at universities and museums throughout the Southwest to create a virtual network of ground dwelling arthropods which are notably responsive to temporal and spatial environmental changes. These 10 collections document much of the Southwest's biodiversity, but currently the data associated with millions of arthropod specimens are not easily accessible. To overcome this, SCAN will develop methods for integrating existing databases, catalogue-image specimens, develop new electronic identification techniques, and produce a virtual library of ground-dwelling arthropods (beetles, grasshoppers, spiders, ants). In addition the project will work with the existing project Filtered Push to increase the capacity of experts to provide remote identifications and annotations of data that can be sent throughout the network.

The comprehensive SCAN online library and expert information will be available to the public as well as professionals in taxonomy, ecology, and climate change science. Smaller institutions will be provided increased access to large data sets for promoting research. The SCAN datasets will support a number of ongoing projects examining the effects of environmental and land-use change on individual arthropod species. By increasing access to this information, SCAN will stimulate new research and increased awareness in biodiversity conservation throughout the region. Over 50 undergraduates also will be trained in cyberinfrastructure, systematics, and ecology. This award is made as part of the National Resource for Digitization of Biological Collections through the Advancing Digitization of Biological Collections program and all data resulting from this award will be available through the national resource, iDigBio.org.